Les Houches Winter School (Workshop) on: Interplay of Genetic and Physical Processes in the Development of Biological Form February 20-26, 1994, Les Houches, France

9320221 Forgacs Funds are requested for travel support for the U.S. participants to the Les Houches Winter School (workshop) on "Interplay of Genetic and Physical Processes in the Development of Biological Form" to be held from February 20- 26, 1994 at Les Houches, France. The aim is to attempt to bridge the gap between the disciplines of biology, chemistry and physics in a particular field: the development of biological form. Chemists and physicists will be brought together will cellular and developmental biologists to discuss the relative importance of genetic and physical processes in development and their possible interactions. ***